MRI Track 1: Acquisition of a Computer Cluster for the Study of Fluids and Plasmas on Earth and Beyond

This award is for the acquisition of a computing cluster that will be used for a variety of topics related to the study of fluids and plasmas, such as studies of Geospace sciences, astrophysics, oceanography, fluid mechanics and Earth’s interior. Projects enabled by the cluster will improve understanding of dynamic natural systems, including space weather, ocean processes, Earth’s interior, and turbulent flows, and the cluster will provide significant training opportunities for students in high-performance computing.

Numerical simulations of fluids and plasmas play a major role in the study of a broad range of systems in astrophysics, heliophysics, geophysics, and engineering. Despite differences in length and time scales of these areas of research, there is significant overlap in the numerical methods and the computational resources required to study them. Accordingly, this acquisition is for a single computational cluster that is carefully designed for the study of such systems and can be leveraged effectively by a broad community of scientists. Specific research topics that will be enabled by this cluster include: Understanding the generation of the solar wind and its propagation through the solar system, interactions of the solar wind with the Earth’s magnetosphere and the impact of solar activity on space weather, biochemistry of the Earth’s ocean, the evolution of the Earth’s interior, colliding black holes and neutron stars, and the mathematical properties of turbulent flows.